Mathematical & Algorithmic Analysis of Natural and Artificial DNA Sequences

EIA-218568
Bhubaneswar Mishra
New York University

Mathematical and Algorithmic Analysis of Natural and Artificial DNA Sequences

The PI is developing tools that play an important role in understanding the properties of both natural and artificial genomes and thus, elucidates how such DNA evolves under natural and artificial conditions (in vitro or in vivo). The ultimate applications range from building error-resilient biological computers all the way up to understanding how genome structures (e.g., genes, gene families, synteny groups, haplotype blocks, chromosomes, etc.) have naturally evolved.

With this goal in mind, the PI is developing several modeling and statistical algorithms with efficient implementations in order to solve design problems in genomics, biosensors, biocomputation and evolutionary biology. The final "tool box'' design contains: a software environment and language that allows users to visualize and analyze long DNA or RNA molecules, a "gene grammar" to model various genome-wide evolutionary processes, statistical analysis of the structures of various natural genomic DNAs evolving under replication and proof-reading processes and finally, a physical annotation of the genome that can be used in designing genomic microarrays or aptamers for biosensors.